Japan JSPS Program: First-principles Investigation of Quantum Diffusion in Alkali Halides

9602520 Briere This award supports a 12 month Japan Society for the Promotion of Science (JSPS) Postdoctoral Fellowship for Dr. Tina Marie Briere at the Institute of Solid State Physics, University of Tokyo in Tokyo, Japan. Dr. Briere will work with Dr. Shinji Tsuneyuki, professor at the Institute, on a research project entitled "First-principles Investigation of Quantum Diffusion in Alkali Halides". The proposed research will utilize theoretical first- principles techniques in order to study quantum diffusion of muonium in alkali halides. Recent experiments using muon spin relaxation have mapped the diffusion rate as a function of temperature. The curve of the diffusion rate is quite different in the high and low temperature regions, indicating two different types of diffusion: incoherent and coherent quantum. The goal of the proposed research is to describe the diffusion rate in the low-temperature region from a theoretical viewpoint whose basis does not depend on experimental parameters. Muonium (Mu), a light atom consisting of a muon and an electron, has been chosen for the analysis because its light mass has allowed for clear experimental observation of quantum diffusion. The Car- Parinello first-principles method will be used to map the potential energy surface as the muonium atom diffuses through a KCl crystal. The wavefunction of Mu will then be determined numerically, followed by calculation of diffusion parameters which can then be compared to earlier experiments (e.g. Mu diffusion rate). ***